Synoptic and Mesoscale Structure and Evolution of Winter Storms in the Central United States and Their Associated Precipitation Bands

9505849 Martin A winter-time meteorological phenomenon known as an inverted trough has been shown to be associated with extreme weather events such as heavy snow with high winds. To date, however, there has been little study of inverted troughs. The goal of this research is to investigate the mesoscale structure, evolution and precipitation distribution associated with inverted troughs. This research will be accomplished by using detailed data sets acquired during the already completed Stormscale Operational and Research Meteorology-Fronts Experiment, Systems Test (STORM-FEST) field program, along with an advanced mesoscale numerical model. By adding to the current understanding of the processes responsible for the production of mesoscale precipitation bands in the Northern Great Plains winter cyclones, the results of this research will help to improve short-term weather forecasting in the region. ***